Diagenetic Nucleation, Ripening and Ostwald Stepping

Ortoleva--9903132

Models and numerical simulation tools to address nucleation, crystal growth and Ostwald stepping in diagenetic systems are developed and used to gain an understanding of their role in the evolution of the state of sediments during burial. Nucleation phenomena are modeled by simulating the coupled dynamics of the particle (crystallite) size distributions for the participating mineral chemistries and polymorphs. The size distribution of each phase is allowed to evolve with rates that account for particle size and shape through the dependence of the rate and equilibrium constants. A new numerical technique is introduced that allows for the simulation of particle growth from monomer and dimer to
macroparticles ( 10-23-mer). The algorithm is used to simulate the spatial variations of the particle size distributions across a layer of sediment. Application of the theory is made to systems with polymorphs of illite (platy or fibrous) or the many-polymorph system.

[NOTE: in "10-23-mer" above, the -23 is an exponent